SBIR Phase I: Methanol Crossover-Resistant, Membrane Electrode Assembly

This Small Business Innovation Research Phase I project will develop a low cost Methanol Crossover Resistant - Membrane Electrode Assembly (MCR-MEA) for use in liquid feed Direct Methanol Fuel Cells (DMFC). A chemically resistant, dimensionally stable, high temperature MEA will be produced. This MEA will address serious problems preventing Next Generation Vehicle (NGV) commercialization, including: methanol crossover, excessive cost and ease of manufacture. These new MCR-MEA based fuel cells will achieve a increase in power density. The development team includes experts in polymeric membranes, catalysis, MEAS, and fuel cell commercialization (LANL, IFC, GM and Ballard). DMFC are attractive for defense and transportation (NGV) applications due to their lower weight and volume since they do not require any bulky fuel processing equipment. DMFC have rapid start-up and load following capabilities and also avoid the hazards associated with handling gaseous hydrogen. Commercial applications for DMFC fall into three broad categories: space and military, utilities and automotive. Space and military applications include space based (e.g. Space Shuttle), surface ships, low power units (battery replacements) and portable/mobile field generating units. Utility applications include communications, computers (laptop) and stationary power generation. Automotive applications include automotive (NGV), bus, truck and railway power. The automotive (NGV) application itself represents an incredible market potential.